Dissertation Research: A Quantitative Investigation into the Origin of Modern Humans

The primary purpose of this Dissertation Improvement Proposal is to clarify some of the factors affecting the appearance of early modern humans. Currently this is a major point of contention in anthropology for some feel that modern humans arose quite recently while others attribute much greater antiquity to our species. The student proposes to gather measurements on crania from the Middle Pleistocene, the early and middle Upper Pleistocene and the late Upper Pleistocene; the key time periods involved in this debate. The data will then be analyzed by a variety of algorithms in order to test the competing theories about modern human origins.